The Physics of Flux Emergence on the Sun

Fisher, George
"The Physics of Flux Emergence on the Sun"
AST-9819727

The origin and emergence of magnetic fields on the surface of the Sun and its relationship to active regions and flares will be investigated by comparing theoretical models to data collected at ground- and space-based facilities. The study has three main objectives: (1) how magnetic flux emerges from the solar interior and manifests itself as an active region; (2) to determine which physical properties of active regions are most closely associated with flares, and (3) to identify why those physical properties are associated with flares. Previous work has suggested that a 'kink instability' is associated with so-called 'd-spot active regions' thought to be closely associated with flare activity. Detailed magneto-hydrodyamic and radiative transport physics will be incorporated into new models of buoyant magnetic flux tubes. Comparison of these models with high resolution observations will provide a strong test of the hypothesis that rising unstable flux tubes 'disconnect' from their magnetic roots and manifest the observed properties of d-spot active regions. The results of this study are likely to be applicable to other cool stars that exhibit surface activity.